User Choice Dynamics in Congested Traffic Systems

This project will investigate in-depth analyses of data from experiments involving commuter decisions in a simulated traffic system. Factors to be considered are: individual user route choice and departure times, and travel time prediction. The results of this study will contribute to methodological and substantive aspects in a broad realm of complex large scale systems involving the interaction of human decisions.